CSR: Small: Advancing Operating System Interfaces to Solid-State Storage

Solid-state storage technologies, such as flash, phase-change memory
and memristors promise large-capacity storage at speeds much faster
than disk. To date, mainstream use of these technologies has been as a
replacement for disks, storing a disk-oriented file system. However,
solid-state storage is and will remain far more expensive than
disks. Thus, it will often be used as a cache or special-purpose
store, and not as the main repository of data.

This proposal develops new interfaces to solid-state storage that
leverage its new features, such as access via ordinary memory
instructions, and its role in large software systems as a middle layer
between memory and disk. It focuses on two forms of solid-state
storage: flash memory, common in solid-state drives and mobile
devices, and forthcoming storage-class memory, which compared to flash
promises lower latency, better endurance, and access as memory rather
than as a device.

This research addresses important concerns about using solid-state
storage: how best to use the capabilities of these devices to improve
specific applications or use cases, such as caching; how to provide
access to internal management capabilities of solid-state storage
devices, such as address translation and garbage collection, to
applications; how to remove software layers between an application and
storage to reduce latency; and how to provide reliable storage while
removing many of the layers that currently provide reliability.